The Mobius Function

DMS-0301168
Iwaniec, Henryk

Abstract

Title: The Mobius Function

The Proposal deals with approximations to the Mobius function by
coefficients of modular forms, particularly of these associated with
elliptic curves of positive rank. The key problem is to achieve high
uniformity with respect to the size of the conductor relatively to the
cardinality of the family of forms being employed. The basic tools are
character sums and exponential sums. The estimates already established
indicate that stronger results are possible. Even a slight improvement will
be critical for applications, especially for the elimination of the
"exceptional zero" of L-functions. The Proposal includes several
conjectures which set the way to attack the main problem.

One of the fundamental goals of arithmetic is to measure the
failure of unique factorization property in number fields. The Proposal is
motivated by a desire to solve this classical problem in analytic terms,
specifically by giving an effective bound for the so called class
number. This will be significant also for understanding the modern tools
of analytic number theory, and may attract new researchers because of
possibilities to apply these methods to other central issues.